Dissertation Research: A Study of Middle Paleolithic Denticulated Tool Variability

Under the direction of Dr. Anthony Marks, Ms Amy Campbell will conduct research for her doctoral dissertation. She will analyze stone tool assemblages from a number of Middle Paleolithic sites from Nubia, the Negev, the Near East and Western Europe to understand the manufacturing process which produced "denticulate" types of tools. These collections are housed in museums both in Europe and the United States. Middle Paleolithic cultures were widespread in the Old World and date to periods greater than 40,000 years ago. While archaeologists have focussed their analytic efforts on some types of stone tools which are included in such lithic assemblages, denticulate pieces have received little attention. A denticulate is defined by closely spaced notches along the edge of a stone flake which create a saw tooth effect. The Middle Paleolithic period is of great interest to archaeologists because it is during this time that anatomically modern humans first appeared. Scientists want to understand what cultural adaptations are associated with this emergence and the main body of data available consists of stone tools. Through classification of these into different types and the study of variation within types they are able to make inferences about both the cognitive abilities and the social organization of their makers. It is surprising that so little attention has been focussed on denticulate because they are widely distributed and are common in most assemblages. Ms Campbell's work will increase our understanding of how they were manufactured and what functions they served. This research is important for several reasons. It will provide insight on the factors which led to the emergence of modern humans. It will provide data of interest to Old World archaeologists and will assist in the training of an extremely promising young scientist.